Collaborative Research: Volatiles in Mantle Plumes: Implications for Geochemical Cycling of Volatile Elements

This project will analyze the water and carbon dioxide in basalt glasses from four areas chosen to represent different mantle magma sources. Heavy isotopes and He-3 distinguish deep (primary) and shallow (recycled) mantle-plume reservoirs. Characterization of the volatiles will contribute to understanding physical properties and fractionation of the melts, as well as the degree of crustal contamination resulting from recycling of subduction-zone material.